Peptide Signaling for Plant Defense

The objectives of this research are to investigate the properties of novel peptide
defense signals discovered in tomato and Arabidopsis plants that have important roles
in amplifying the defense systems of the plants to strengthen the resistances against
pathogens and insect pests. Until the discovery of the defense peptide called systemin
in tomato leaves in 1991 by Ryan and colleagues, no peptide signals were known to be
components of plant signaling. Over 20 peptide signals are now known that regulate
both defense and development. A novel, rapid, and simple assay has been developed
in the Ryan laboratory that can identify new peptide signals in plant extracts. This
assay has allowed the discovery of several new peptide signals for both plant defense
and development including a peptide called AtPep1 that enhances the innate immune
responses of the plants against pathogens. The gene encoding the peptide is a
member of a gene family that is found in species throughout the plant kingdom.
Biochemical, molecular, and genetic approaches will be carried out to understand the
role of peptide signals using tomato and Arabidopsis plants as model systems. The
localization of the peptides and their precursor genes in plants will be studied, and how
the peptides are produced from precursor proteins and perceived by plant cells to
activate defensive genes in response to herbivores and/or pathogen attacks will be
investigated. The peptides that enhance plant defense responses have provided new
insights toward an understanding of innate immunity in plants, which are the earliest
responses of plants in response to most attacking organisms. The knowledge gained
will contribute to the framework of the basic principles that govern peptide signaling in
the plant kingdom. Such information will contribute to an understanding of defense
peptide signaling in both plants and animals, and will be especially useful in breeding
and biotechnological approaches to enhance yields in major agricultural crops. A major
component of this grant is to train undergraduate and graduate students as well as
postdoctoral fellows and visiting scientists in fundamentals research that can be applied
to agriculture and human health. The PI's successful ongoing efforts to bring women and minorities into my laboratory will continue through the tenure of this project.